Contemporary Mathematics and the Internet

9818666
DEVANEY

This project at Boston University is developing six interactive modules for high school mathematics classrooms that deal with aspects of the geometry and algebra of chaos and fractals. Each module is a completely interactive Java applet and is available free on a Boston University web server. The evaluation includes a study of effective ways teachers use these materials in mathematics classes. The Linear Web applet allows students to enter a particular linear function and then view the associated graphical iteration and time series. The Nonlinear Web applet allows students to view the results of graphical iteration of nonlinear functions. Target Practice helps students comprehend the notion of graphical iteration in a "game" setting. The Orbit Diagram applet brings together the concepts from the previous modules by painting various orbit diagrams. The Mandelbrot and Julia Set applet assists with visualization of complex iteration. A sixth applet, The Mandelbrot and Julia Set Explorer, is a completely interactive primer dealing with the mathematics of these Mandelbrot and Julia sets.